The Macroscopic Response of Materials

This research will investigate the macroscopic response of both homogeneous
and heterogeneous materials. For homogeneous materials it will obtain
sharp tests as to whether actual measurements of the electrical or viscoelastic
response over two different frequency intervals are compatible. For
heterogeneous materials it will bound the dielectric and viscoelastic
response of materials both in the frequency domain and in the time domain.
In addition the principal investigator will determine what macroscopic
stress strain combinations can or cannot occur in both linear and non-linear
composites and will identify microstructures which have extremal stress-strain
combinations. These are expected to be important in applications where one
wants to channel stress from one area to another. The research will shed
further light on exact microstructure independent relations amongst the
effective moduli of composites. It will also obtain dramatic accelerations of the
convergence rate of certain iterative numerical schemes which have been
developed to compute the properties of both linear and non-linear composites.

A better understanding of the macroscopic response of materials is of central
technological importance. This importance stretches across the board, from
understanding the macroscopic response of engineered materials (of critical
importance to the defence, automative, and aerospace industries), to
understanding the macroscopic response of polycrystalline and porous rocks
(relevant to earthquake prediction and to the oil industry), to understanding
the macroscopic response of sea ice (important to climate modelling),
to understanding the macroscopic response of biological materials
(such as tissues, bones, shells and tendons). The research funded with this
award will enhance our understanding in ways that will facilitate the development
of new materials, provide procedures for testing the reliability of experimental
measurements, and accelerate numerical computations.